Separation of Large DNA Molecules by Gel Electrophoresis Using a Sweeping Electric Field

This is a SBIR Phase I project in the topic area of biological instrumentation. Ansoft Corporation will test the feasibility of applying a sweeping electric field to electrophoretic separation of large DNA molecules. This technology tries to circumvent a major weakness in the existing electrophoretic separation methods for large DNA molecules. If successful, such technology will help advances in genome research.